Tools for Undergraduate Program Derivation

9451614 Naumann Programming expertise is based on a solid theoretical foundation as well as practical experience. At Southwestern, we teach formal derivation of programs from specifications (as developed and practiced by Edsger W. Dijkstra, David Gries, and others) as the central organizing topic of our first-year courses in computing. Program derivation provides the foundation for most of the student's subsequent study. To support the creation and revision of lengthy programs and derivations, we propose to use a "proof editor" for which we need workstation computers. The proof editor program will facilitate communication among students and among faculty at a number of schools developing courses in program derivation. Availability of advanced workstations will also enhance student's practical experience in several other courses.